DISSERTATION RESEARCH: Ecophysiology of Hummingbirds Along an Altitudinal Gradient: An Integrative Approach

North American hummingbirds are specialized to feed on the energy-rich diet
provided by flower nectar. These diminutive birds gain access to flowers
through their unique form of locomotion: hovering flight. Hummingbirds are
typically found in all North American habitats with abundant flowers,
including very high altitude meadows such as those that occur in the Colorado Rocky
Mountains. The rufous and broad-tailed hummingbirds compete for floral
resources in the Rockies across a altitudinal range spanning 2500 meters.
The two species weigh about the same but the wings of the rufous
hummingbird are on average only 83% of the size of the broad-tailed
hummingbird's wings. Because air is thinner in the mountains, species with
large wings can more easily generate enough lift to fly at high altitudes.
However, species with larger wings are at a disadvantage at low altitudes
because they are less agile than species with small wings. Small-winged
species outcompete large-winged hummingbirds at low altitudes, so there is
a trade-off between competitive ability and altitudinal range. The PIs predict
that rufous hummingbirds will outcompete broad-tailed hummingbirds at low
elevations and thus dominate the best resources. Conversely, the rufous
will be less competitive at high elevations due to high costs of flight and
thus relegated to the less preferred resources. The PIs also predict that the
increased costs of flight and related competitive behavior will be
influenced by the density of the air rather than by oxygen availability.